Conference on Tissue Engineering

9314756 Nerem This conference will focus on recent advances in Tissue Engineering. It will be held concurrently with a conference on "Biology of Physicochemical Interactions at the Cell Surface". In addition to the opening keynote address, these two conferences will have three other joint sessions focusing on basic principles. The first of these will explore how cellular interactions and extracellular matrix influences cell function and tissue modeling: the second, on biomaterials, will discuss currently available methods for fabricating artificial tissue scaffoldings and new approaches for synthesizing novel attachment substrates using biological molecules; and the third will focus on concepts in the regulation of biological activity by mechanical stresses. In addition, there will be a series of five sessions directed towards recent experiences in the development of organ-specific tissue-engineered biological substitutes. ***